Grand Challenges for a Sustainable Chemical Enterprise

ABSTRACT - 0516980
National Academy of Science

As companies struggle to ensure their long-term viability, and the government struggles to ensure the integrity of the nation, both the public and private sectors are attempting to better apply the concept of sustainability to their strategic thinking. This project will engage the chemistry and chemical engineering community in defining the necessary research objectives that will enable a transition towards sustainable products, processes, and systems for the chemical industry.

Objectives for this proposal are to:

1. Identify key research areas that will facilitate the transition to sustainability
2. Communicate the rationale for driving green chemistry and provide the data to substantiate the
need
3. Consider a plan of action to effect change in curriculum development to meet the demand for
green and sustainable chemistry
4. Define key enabling technologies that drive the application of green chemistry and engineering
5. Identify key supply chains and or parts of a supply chain that the research agenda can address
6. Provide a research roadmap to the future which spans the next 25 years

Methods

Under this proposal, funds will be utilized to hold a workshop to define a set of Grand Challenges for sustainability. This workshop will result in findings and recommendations from the workshop's organizing committee, which will be issued in a public report, which will be distributed to R&D decision makers in the public and private sector. Significant effort will also be made to disseminate the results of this activity to the broader science and technical community in order to stimulate work to address these Grand Challenges.

Intellectual Merit of Proposed Activity

In this project, efforts will be made to engage the chemistry and chemical engineering community in applying sustainability to the chemical industry. A foundational body of ideas, or Grand Challenges, will be defined, and specific recommendations will be provided for federal and private scientific research investment that will advance the development of sustainable chemical products, processes, and systems in the chemical industry. The National Research Council, through its Board on Chemical Sciences and Technology is well suited to guide such an activity because it serves as a neutral well-respected facilitator in the scientific community.

Broader Impacts Resulting from the Proposed Activity

Applying sustainability to the chemical industry is inherently directed at addressing the broader impacts of chemistry and chemical engineering on society. This project will thus consider the challenges and research directions aimed at optimizing chemical products and processes with respect to environmental, economic, and societal concerns, for example: energy and material consumption, inherent safety, toxicity, environmental degradability, cost, public transparency, product availability, and equity. At the core of this effort will be-for the benefit of the common good-determining how to improve the relationship between those who conduct chemical research, those who engage in the commerce of chemistry, and those who willingly or not become impacted by the activities of the greater chemistry and chemical engineering community. This will certainly include a consideration of how sustainability concepts can be better integrated into the fundamental education of every chemist and chemical engineer.